The Realization of a Retinal Prosthesis for the Totally Blind

9810914 Humayun This research is a component of a collaborative project between Johns Hopkins University and North Carolina State University to develop a retinal prosthesis. This proposal is concerned with components that will interface with the multiple unit artificial retina chipset designed by the investigators. Specifically, this research will design and develop the electrode array, the hermetic sealing process for the implanted components, the video camera and video processing circuitry, and perform biological testing. ***